Generalized cohomology theories of flag manifolds, and other manifolds

DMS-0072667
Allen I. Knutson

Allen Knutson's proposed work is about Schubert calculus
on flag manifolds, which combinatorially is about counting
the (obviously nonnegative) number of flags satisfying a
list of intersection conditions with other flags, and is
computable as a (not obviously nonnegative) integral over
a flag manifold. The main question in the field concerns
finding a totally-positive combinatorial formula rather than
the alternating sum. His work with Dr. Terence Tao on the
case of single subspaces, refining totally-positive formulae
already known and solving long-standing conjectures in that
relatively simple case, has suggested new lines of attack
on the general problem.

Given four straight lines (picture them as blue) drawn in
space, in generic directions, how many other straight lines
(picture them as red) touch all four? In special cases
there are many, but generically there are exactly two
such red lines. This is the first interesting case of a
general problem counting the number of flat subspaces
(in this case one-dimensional) intersecting a number of
other subspaces (which can even be curved). Computers
can determine this obviously nonnegative number in any
given case, but do so by adding many large positive and
negative numbers together -- in particular it is difficult
to determine easily if the number is zero. Also many
interesting cases in engineering are beyond the reach
of computers. Dr. Knutson's work concerns the search for
a manifestly positive formula for these (no cancelation),
which in particular would make it much more straightforward
to determine which such problems have any solutions at all.
Under previous NSF support he and Dr. Terence Tao already
determined this positivity criterion in a famous subcase
of the general problem.